Mathematical Sciences: Computers in Dynamical Systems and Spectral Geometry

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment in this project consists of four linked powerful microcomputers which will be used in testing, examination, and formulation of hypotheses concerning dynamical systems and in the study of questions involving spectral phenomena and group theory for Riemannian manifolds.